Introduction of Gas Chromatography - Mass Spectrometry (GCMS) into the Undergraduate Chemistry Curriculum

The recent acquisition of a gas chromatograph/mass spectrometer (GC/MS) system (including a computer-controlled work station) by the Chemistry Department at San Jose State University is providing undergraduate students with a hands-on working experience in a modern and powerful analytical technique vital for training the modern chemist in such fields as organic and analytical chemistry, toxicology, forensics, and environmental sciences. Extensive use of the system occurs in a new Separation Science Course, with additional use in the organic and biochemistry laboratories, as well as in undergraduate research, resulting in significant enhancement of the chemistry curriculum.